The Coming of Age of American Biology

The United States, by virtually any measure, is the world leader in biology. How it achieved this preeminence is a significant aspect of Dr. Maienschein's study. During the period from 1880 to 1915, work in the life sciences in the United States underwent a significant maturing process, becoming self-consciously modern, productive and explicitly biological as well as uniquely American in some respects. Four individuals, Edmund Beecher Wilson, Edwin Grant Conklin, Thomas Hunt Morgan, and Ross Granville Harrison, played central roles in establishing strong and successful research programs which attracted international attention and graduate student interest. Each of the four became a leader in establishing major biological societies, journals, and research funding foundations. They tried to hire each other and retained strong ties beginning with their graduate student days at Johns Hopkins. Yet they generated divergent programs in developmental biology: Wilson in cytology at Columbia, Conklin in experimental evolution in Princeton, Morgan in genetics at Columbia, and Harrison in experimental embryology at Yale. Dr. Maienschein is focusing on those four individuals and on their changing research programs, thereby also examining the process of scientific change at this critical time in the rise to preeminence of American biology.